Collaborative Research: Understanding Compact Binary Star Formation with the First Gravitational Wave Detections

The first detection of gravitational waves (GW) by the LIGO observatory was from the collision of two black holes (BH), which are considered a type of compact binary stars. This has opened up a new window in astronomy, enabling a deeper understanding of the physics of relativity through the study of merging BHs, the objects that bend space and time the most. Since these interactions are so complicated, powerful computer simulations are needed to interpret the science. A collaboration between research groups at the University of Mississippi and Pennsylvania State University will develop and run computer models to better understand the formation and development of compact binary star systems and to more effectively use the rich information from gravitational waves to probe these systems. A related effort is the development of methods to use GW in the future to study dark matter. The research team will also promote scientific literacy by providing astronomy lectures, demonstrations, and hands-on activities to school children and adult citizenry in economically disadvantaged communities in the state of Mississippi and the commonwealth of Pennsylvania.

The investigators will carry out two closely related projects to model the gravitational wave astrophysics of compact binary systems. The first project concerns the astrophysical information that can be extracted from the characteristic signature imposed on a gravitational wave signal due to the spin and the orbital precession of coalescing black hole binaries. The team will introduce spin dynamics into compact binary evolution models and track the evolution of BH binaries from formation through merger, including effects such as an initial supernova kick, mass transfer and spin-orbit coupling. An offshoot of this work is to investigate bounds on ultra-light bosonic dark matter though its possible GW signature. The second project will involve inferring compact binary population models from a catalog of gravitational wave observations. The team will put together a database of evolutionary models and work to distinguish between the predicted observables of the various models. Goals include understanding the distribution of BH masses, spins, and merger rates and the properties of the stochastic GW background. The principal investigators will mentor a graduate student and postdoctoral researcher and plan to organize two workshops on strong gravity and binary dynamics and to lecture at international graduate schools on work related to the proposal.